An Assessment of Computed Tomography and Related Technology as an Improved Means of Characterizing Bone Structure

The problems of assessing the deterioration of musculoskeletal functions in a human after disease or excessive loads, continues to be a social problem of enormous magnitude. Major advances in computerized axial tomography (CAT) scanning during the past decade has provided an effective means to spatially and quantitatively examine the internal structure of parts of the body. CAT scan images are interpreted to provide information for improved diagonistic procedures and treatments. Further advances in the CAT scan method appear possible by utilizing image analysis methods to quantatively evaluate the CAT scan images. The research program deals with developing software for image analysis to establish a quantitative method for evaluating bone structure, density and geometry of the human musculoskeletal system. Specifically the project will focus on osteoporosis femur specimens with the objective of evaluating the extent and severity of the disease. Physical and mechanical property evaluation will also be performed to correlate CT data with important mechanical properties. PDA Engineering has an excellent background in R&D associated with both industrial and medical CT scanner systems and have significant experience in biomedical applications. The staff qualifications are excellent as the research team has extensive experience in electronics, NDE and bioengineering which are required for successful completion of the program. A grant is recommended.